Fast Kinetic Monte Carlo Simulation of Crystal Growth and Evolution

Schulze
0707443

This project concerns both the development of fast Kinetic
Monte-Carlo (KMC) algorithms and their application to simulating
nano- and micron-scale crystal growth. Viewed broadly, KMC is
the numerical task of simulating stochastic models. While the
focus of the project is primarily on crystal growth, KMC
simulations arise in many contexts, including micro-magnetics,
ecology, and chemical processes. The algorithms that are
developed are applicable to all such models. In this work,
however, two new algorithms with single event execution times
independent of the system size are used to examine dendritic
growth during solidification. Dendritic growth refers to a
common interfacial instability that occurs during the formation
of solid materials -- snow flakes being a familiar example.
These instabilities have a number of practical implications for
materials processing and are also of fundamental scientific
interest. Dendrites that form in both pure and composite
materials are studied.

This project concerns the development of computer programs that
simulate the behavior of solid materials on length scales that
are so small that individual atoms are resolved. It therefore
has direct impact on the area of nanotechnology, which is rapidly
emerging as an area of national strategic interest. The programs
that arew developed are the most efficient of all known ways for
performing this particular type of simulation. These simulations
simulate the growth and evolution of solid phase materials by
imitating the random motion of individual atoms using millions of
random numbers, which themselves are generated by a separate
computer program. A particular type of solid phase growth from a
liquid material that gives rise to a snow-flake like crystal
structure is a principal area of study, but the computer programs
themselves are designed in a way that also makes them useful in a
much broader class of problems. Students are involved in the
project.